RUI: California State University System Microchemical Core Facility

This award provides funds to establish a multiuser Microchemical Instrument Core Facility within the Department of Chemistry at San Diego State University. The facility will service the needs of molecular life science researchers within the 19 campus California State University system as a component of the Program for Education and Research in Biotechnology. It will also be available to researchers in allied academic and research units such as Agricultural Biotechnology, Environmental and Natural Resources, Bioengineering and Bioprocessing, and the Molecular Ecology Institute. The facility will support research on structural studies of Mg-ATPase from muscle transverse tubule; DNA elements and protein factors involved in expression of genes encoding small nuclear RNAs, protein fatty acylation and deacylation in yeast; isolation, characterization, assay and cloning of transcuprein; extracellular proteins of sea urchin embryo; metal homeostasis in developing artemia salina; biochemical mechanisms of neurotranmission; etc. The primary investigators are productive and well funded. Support of this proposal will have a major impact on research and teaching in the California State University System.